Forms in Many Variables over Local Fields

The investigator studies conditions under which systems of
homogeneous polynomials in many variables have nontrivial zeros in p-adic
completions of the rational numbers. A conjecture usually attributed to
Artin states that if the coefficients of the polynomials are all integers,
then such zeros exist in all p-adic completions provided that the number
of variables is large enough when compared to the degrees of the
polynomials, and gives a bound on the required number of variables. While
the first part of this conjecture has been shown to be correct, the
conjectured bound is false in general. However, the bound is correct if
the prime p is sufficiently large. This leads to the questions of what
the correct general bound should be and also how large the prime p needs
to be for Artin's bound to hold. The investigator studies these questions
in general, and also when the polynomials are restricted to being additive
(i.e. having no cross-terms). These questions are studied both when the
degrees of the polynomials are all equal and when they may vary, and are
also studied in the more general setting where the p-adic completions of
the rational numbers are replaced by extensions of these fields.

Since the time of the ancient Greeks, a fundamental question in
number theory has been to find solutions of (systems of) equations in
which all of the variables are integers. When attempting to show that
such solutions exist, it is often first necessary to obtain information
about the so-called "local" solutions. These are solutions in the number
systems of "p-adic integers," where p may be any prime number. In fact,
it turns out that if there is even one prime p for which the system does
not have a solution in p-adic integers, then it has no solutions in
ordinary integers either. There are also some special situations in which
the converse holds: if the system has solutions in p-adic integers for
every prime p, then it automatically has a solution in regular integers.
Hence it is an interesting problem to attempt to determine when equations
have p-adic solutions. Such questions are also interesting apart from
their connection to integral solutions of equations, since they provide
insight into the nature of p-adic numbers, and how they differ from
ordinary real numbers.